REU Site: Cellular and Molecular Biology

This award provides funds to the Microbiology Department of the University of Texas at Austin to continue their REU site Program designed to introduce gifted undergraduates into on-going productive Cell and Molecular Biology research programs. Participants will be actively recruited nationwide, but emphasis will be given to undergraduates who would not otherwise have the opportunity for original research, especially women and minority students. Students will have access to well-funded and equipped labs in which the research covers both prokaryotic and eukaryotic systems and deals with: membrane structure and transport, DNA replication, site-specific recombination, gene expression and developmental control, immunological mechanisms, pathogenic mechanisms and viral transformation. Participants will work individually with faculty mentors but have access to all faculty through seminars and informal discussions. Follow-up procedures will promote interest in research careers and encourage students to apply to graduate schools in cell and molecular biology. UT Austin makes a strong commitment to this Program, including support for a dedicated program coordinator and provision of room, board, travel and fees for minority participants.